Regulation of Manganese-Superoxide Dismutase in Escherichia coli: Isolation and Characterization of the Repressor Protein

Synthesis of the manganese-containing superoxide dismutase (MnSOD) in Escherichia coli is regulated by changes in the redox state of the cell as well as by the concentrations of oxygen, superoxide radicals, and intracellular iron. To accommodate these facts, a regulatory model based on a negatively-controlled operon has been proposed where an iron-containing redox-sensitive protein is envisioned to play the role of a repressor. The best proof of this model comes from recent success in isolating trans- acting mutations that cause the constitutive expression of sodA gene. This is the first time such mutants have been isolated. The MnSOD regulatory gene (sodR), will be cloned, its nucleotide sequence determined, and its position mapped on the E. coli chromosome. The product(s) of sodR gene will be identified and purified and its effect on the expression of sodA will be studied. Studies to identify the operator site of sodA gene will be conducted. Oxygen is essential for the survival of aerobic organisms, yet it is known to be toxic and mutagenic. These deleterious effects of oxygen are due to the generation of several reactive partially reduced intermediates. Superoxide dismutases are present in almost all living cells and provide protection against oxygen toxicity and mutagenicity by scavenging and eliminating the deleterious chemical species. Understanding the mechanisms of regulation of superoxide dismutases is essential in order to understand how aerobic as well as anaerobic cells cope with oxygen and oxidative stresses.